Theoretical Nuclear Physics

This research in theoretical nuclear physics will obtain an accurate assessment of the nuclear spectral function in terms of the nucleons structure function. Recent lepton- nucleus scattering data will be analyzed to set limits on the magnitude of pure quark effects inside the nuclear medium.